Presidential Young Investigator Award

Professor Kapitulnik will investigate superconductivity near the metal insulator transition. Superconductivity near the percolation threshold for lead films deposited on germanium or on cadmium sulfide will studied. Both the weakly-localized regime and the strongly localized regime in various systems exhibiting Anderson localization will be studied. The interesting high Tc materials will be investigated. Other projects include a study of the superconducting proximity effect with a two dimensional electron gas and the quantum Hall effect and fractional quantum Hall effect in the limit of low carrier density.